Synthetic, Structural, and Mechanistic Studies of Monomeric Alkyl, Hydride, Sub-Valent, and Multiply Bonded Derivatives of the s-and p-Block Elements

This award in the Inorganic, Bioinorganic, and Organometallic Chemistry Program supports research on main group compounds by Dr. Gerard F. R. Parkin of the Chemistry Department, Columbia University. Synthetic, structural, mechanistic and thermodynamic studies will be undertaken to provide a comprehensive and fundamental understanding of main group (e.g., Al, Ga, Ge, In, Sn, Tl) complexes and their potential applications. Emphasis will be placed on metal-alkyl and metal-chalcogenide complexes and on the energetics of metal-main group multiple bonds. A series of new, structurally analogous compounds will be prepared using sterically-controlling ligands. The ligands to be used include poly(pyrazolyl)hydroborate, tris(imidazolyl)phosphine, and tetraaza(14)annulene. The steric environments created will be capable of supporting monomeric alkyl, hydride, chalcogenolate, subvalent, and multiply bonded chalcogenide and pnictide derivatives. Chalcogens S, Se, and Te are included in the study; pnictogens include P and Bi. Complexes of main group elements find application as precursors for ceramic materials, semiconductors, and superconductors. For example, binary II-VI chalcogenides (e.g., ZnSe and ZnTe) and III-V pnictides (eg., GaAs and InP) are used in photovoltaic energy conversion devices, light-emiting diodes, solid-state lasers and optical switches. Ceramics and porous solid state materials formed from chalcogenides and pnictides are also in use. In this study, new molecular compounds of controlled structure will be prepared and characterized in order to better be able to correlate the chemistry of these compounds with the properties of materials containing them.